Mathematical Sciences: Mathematics of Point-Defect Diffusion Models for Semiconductors

The diffusion of impurities in semiconductors must be modeled accurately to achieve the shallow junctions and high densities required for very large scale integration. A five -species kinetic model has been proposed to explain the observed nonlinearities in dopant profiles without ad hoc assumptions and a research code written to implement the model in three dimensions. Much work remains to analyze the resulting reaction-diffusion PDE system mathematically and to develop computationally efficient algorithms to solve equations numerically. Specific tasks include investigating existence, uniqueness, and stability for solutions to the five species reaction-diffusion system; comparing various integration techniques with the backward difference formula currently used; comparing several matrix-free iterative techniques such as GMRES and BCGS with the incomplete orthogonalization method; finding a suitable preconditioner that is natural; developing an efficient adaptive grid refinement strategy; addressing theoretical questions of convergence and stability for the discrete method; and finally, parallelizing the algorithm. This project has been motivated by the need of developing smaller semiconductors for very large scale integration. Progress in this project has direct consequence in computer hardware design.